Non-Destructive Testing Laboratory Upgrade

The increased demands upon industrial and transportation equipment (power plants, airplanes, etc.), coupled with the continuing shortage of engineers familiar with the potential (and shortcomings) associated with Non-Destructive Testing (NDT), make it imperative that this be an area of increased emphasis in the education of today's engineering students. This project expands and upgrades the Non-Destructive Testing Laboratory by augmenting present A-scan capabilities with two B-scan units. These two instruments, with auxiliary computer equipment, provide the portability and versatility necessary for demonstrating NDT techniques in a realistic environment. The NDT laboratory supports and provides practical applications to a variety of disciplines. The award is being matched by an equal amount from the principal investigator's institution.